Minority Graduate Fellowship

9319077 Sheriff This award is made to the Chairperson, Department of Geology, University of Montana, Missoula, Montana, to support the graduate work of Gerda Smeltzer, while Ms. Smeltzer is a student in good standing at the University of Montana. The funds are to be managed by the P.I., and NSF intends to support the student for up to three years, provided the Chairperson confirms satisfactory progress toward a degree in annual reports to NSF.